Studies of Polarimetric Signatures in Winter and Spring Time Storms Using the CSU-CHILL Radar

Chandra Abstract Studies of Polarimetric Signatures in Winter and Spring Time Storms Using the CSU-CHILL Radar The objective of this research is to study polarimetric signatures in winter and spring time storms using the CSU-CHILL radar. Special emphasis will be placed on Neural network/Fourier descriptor based image classification techniques to process 2D-PM images of hydrometeors for insitu comparison with polarimetric signatures. The significance of the new high performance low side lobe antenna system of the CSU-CHILL radar for studying polarimetric signatures will b observed. Spatial and temporal evolution of polarimetric radar signatures will be studied to develop average signatures in several hydrometeor habit regions. Multidimensional parameter set will be used for classification of hydrometeor and precipitation types. The overall goal is to study the application of polarimetric radar signatures to study the type and distribution of precipitation in winter and spring storms.